NSF Young Investigator

9357415 Sailor This NSF Young Investigator award deals with research and teaching in areas that include the chemistry of luminescent porous silicon, and the role of chemical adsorbates and surface chemical reactions. The potential of these materials for uses such as chemical and bio- sensors, and detector and display applications will be evaluated. ***